A Math/Science Learning Lab: A Multi-Disciplinary Approach To Improving The Teaching/Learning Process

9352059 Myers DCCC will establish a Math/Science Learning Lab to improve and expand the teaching/learning processes of mathematics and science by incorporating integrated computer technology into every course of instruction. The lab will be used to present new material to entire classes; stimulate advanced and independent study activities; provide an environment to produce laboratory stimulations; enable faculty to use more varied formative and summative assessment techniques to monitor student progress; implement specialized software programs for instruction; and shift the emphasis of teaching to a more conceptual approach. An important additional outcome of this technologically-advanced learning environment will be to serve as a model to other undergraduate institutions, particularly community colleges, in creating new ways to stimulate and enhance learning in math and science.